Problems in Algebraic Coding Theory

Abstract for award of Walker DMS-0302024

Whenever information is transmitted across a channel, errors are bound
to occur. It is the goal of coding theory to find efficient ways to
encode the information so that these errors can be corrected.
Algebraic coding theory seeks to do this using techniques from areas
such as linear algebra, group theory, and algebraic geometry. This
project involves four main problems within algebraic coding theory:
the search for an efficient decoding algorithm for algebraic geometric
codes over certain rings, the study of exponential sums over certain
rings and their connections to coding theory, the study of codes from
a structural standpoint, and the construction of quantum codes in
characteristics greater than 2. Much of this project involves work
the PI will do with her graduate and postdoctoral students. In
addition, she will continue her history of being extremely active in
mathematical activities outside her research. These activities
include organizing a week-long summer math camp for high school girls
and a national research conference for undergraduate women
mathematicians. While previously supported by NSF, the PI was the
undergraduate lecturer at the IAS/Park City Mathematics Institute
Mentoring Program, and during the term of the current project, she
will be the principal lecturer at a "Reconnect" workshop for faculty
from primarily teaching-focused institutions.

More precisely, the problems included in this project are described as
follows. In previous work, the PI introduced algebraic geometric
codes over local Artinian rings and proved several foundational
results about these codes. Two portions of this project build on this
prior work. First, in joint work with R. Koetter, the PI intends to
find an efficient decoding algorithm for these codes. This algorithm
will decode with respect to the squared Euclidean and homogeneous
weight measures. The design of the algorithm will depend both upon
Sudan's list decoding algorithm and the Koetter-Vardy soft-decision
version of Sudan's algorithm. Second, the PI will build upon her past
work with exponential sums along curves over rings and their
relationship to codes. While her previous work (joint with
J.-F. Voloch) has focused on Weil exponential sums and their
applications to homogeneous and squared Euclidean weights of algebraic
geometric codes over local Artinian rings, other types of sums have
proven valuable in the study of codes over finite fields and the PI
will now study the ring analogues of these other sums and their
applications. The third area of this project builds on the PI's prior
work on a structural approach to coding theory. She previously used
this approach to revisit the classification of binary self-dual codes,
and in addition to continuing this work, she will look at ternary
self-dual codes as well as additive GF(4)-codes from this point of
view. The fourth and final main area of this project is that of
quantum algebraic-geometric codes arising from algebraic curves.
Together with J.-L. Kim and T. Marley, the PI intends to construct
good algebraic geometric quantum codes in characteristics greater than
2.